2008 Gordon Research Conference on Solid State Chemistry, New London, NH, July 27 - August 1, 2008

The aim of this conference is to bring together researchers from diverse backgrounds to discuss the latest advances and challenges in the area of solid-state chemistry with the intent to promote an exchange of ideas and to build strong relationships among academic, industrial, and government researchers. Internationally known speakers and poster presentations from students, post-doctoral scholars, and early career faculty will emphasize technical advances, the presentation of unpublished work, and the discussion of new ideas and future directions emerging within the solid-state chemistry community. The speakers represent academic, industrial, and government laboratories, and there will be strong international participation. Leading scientists working in various areas of solid-state chemistry are expected to draw the interest of many researchers in the field. Current frontiers to be highlighted include synthesizing and characterizing a variety of new materials that are important in energy generation, storage and conversion. The energy problem impacts many fields of physical science, technology and society. Other highlights include the science of materials synthesis and discovery and porous materials capable of absorbing massive amount of gases such as hydrogen. As a result, the content of some sessions cuts across different materials types and uses, and should therefore draw the interest of those working on diverse classes of compounds and related technologies.

%%%

Solid-state chemistry is an important discipline that generates and develops the new materials that underpin many of the technological advances currently underway. This scientific area has undergone rapid growth in recent years due to the broadly based recognition of the technological importance and scientific challenges involved in the discovery and study of new materials, and due to the influx of scientists from other disciplines who see the opportunities for performing exciting research in this area. The 2008 Solid State Chemistry Gordon Research Conference is a major international meeting to be held July 27-August 1, 2008 at Colby-Sawyer College, New London, NH. The goal of the conference is to facilitate collaborations and information exchange across a broad spectrum of researchers with interests in solid-state chemistry areas. These include new concepts for design and synthesis of novel functional materials, fundamental studies in structure, theory and modeling, and related areas of materials nanoscience and engineering research and education. The NSF funds will be used primarily to support the participation of students, post-doctoral scholars, and early career faculty, as well as senior U.S. session chairs and invited speakers.